Workshop on Group Theory and Numerical Analysis

The funds in this grant will be used to support U.S.
researchers, postdocs and graduate students to attend and
present lectures and posters in a Workshop on Group
Theory and Numerical Analysis at the Centre de
Recherches Mathematiques, Universite de Montreal, during
the week May 26-31, 2003. The workshop features one
aspect of the emerging theory of "geometric integration,"
that advocates incorporating known qualitative features of
systems of differential equations, such as invariants,
symmetries, conservation laws, phase-space dynamics, and
symplectic structure, in their numerical solution
algorithms. In particular, the symmetry properties of a
system of differential equations have proven to be a very
powerful means of understanding the qualitative properties
of its solutions as well as facilitating the determination of
exact analytical solutions. Such special solutions often
serve as prototypes and govern the asymptotics for more
complicated situations, and also as useful testing grounds
for developing numerical integration schemes. The
methods of symmetry analysis and integrability for
differential equations have, more recently, been adapted
with considerable success to analyze discrete equations.
On the other hand, the incorporation of symmetry in the
design of invariant geometric numerical schemes for a
variety of differential equations arising in applications has
recently been the subject of increasing research activity and
advances. The key objective of the workshop is to bring
experts on applications of group theory to discrete
equations together with practitioners of geometric
numerical methods, thereby stimulating a mutually
beneficial exchange of ideas and recent developments and
fostering a cross-fertilization between such closely related
subjects.

Group theory is the mathematical formalization of the
concept of symmetry. Most interesting systems that arise
in applications in physics, engineering, chemistry,
computer vision, biology, etc., possess a rich variety of
symmetries. While exploiting the symmetries of
continuous systems has a long and distinguished record of
achievement, only recently have significant developments
occurred within the discrete regime. Indeed, standard
numerical solution methods used by computers typically
fail to properly respect the underlying symmetry properties.
This workshop will build on recent developments in
symmetry analysis of discrete systems and the development
of symmetry-preserving numerical solution techniques. The
participants are experts in symmetry methods and in
geometric numerical integration. The workshop will
promote interactions and significant progress in both
subjects, as well as their applications in mathematics and
the sciences. The results of the workshop, as presented in
the talks and discussions, will be summed up in a book to
be so focused as to be of permanent value. In addition, an
assessment of the current state of the art in the subjects and
new scientific opportunities stemming from this workshop
will be the focus of a panel discussion and white paper to
be distributed and posted on the web.